Special Project: RCMS: 1993 SACNAS Conference; Albuquerque,New Mexico; January 14-18, 1993

SACNAS, the Society for Advancement of Chicanos and Native Americans in Science, will hold it's annual Conference January 14- 18, 1993 in Albuquerque, New Mexico. The objective of the conference is to encourage undergraduate science students to enter graduate school in order to obtain the Ph.D. degree necessary for careers in research and science education. The Symposia will describe the exciting opportunities in Math, Engineering and Biology and provide strong role models for these fields. The conference will contain workshops, panel discussions and organized small group discussions designed to provide students with career counseling as well as information on research opportunities. Undergraduate students will have ample opportunity to interact with faculty of their own ethnic and racial background; in addition, there will be one graduate student mentor for every four undergraduate students. The conference will have a "Community Science Lecture", a science presentation that is aimed not only at all the conference participants, but also at the local scientific and lay community. An outreach effort to local high school teachers and students is planned as part of the conference on Friday January 15. The exhibitors associated with the conferences will be graduate schools of science, and federal agencies and corporations that offer research careers. The many aspects of the conference are evaluated for effectiveness leading to continual improvements that are partially responsible for the phenomenal increase in attendance that these Conferences have had in the last three years. A summary of the conference proceedings are published and widely disseminated through the SACNAS Newsletter and other national publications.